Trans-Atlantic Research and Development Interchange on Sustainability (TARDIS) Workshop, May/June 2014

1261650 (Diwekar). This grant provides partial financial support for a two-and-a-half day workshop that will bring together American and European engineers and scientists on the topic of social, economic, policy, and regulatory incentives to advance sustainability in society. NSF funds will be used only for U.S.-based researchers. The workshop will be held in the U.S. in May-June of 2014. The workshop will be organized in cooperation with the U.S. EPA and the Austrian Federal Ministry of Science. Discipines represented will include engineering, economics, ecology, law, and policy. A workshop report on outcomes will be provided to NSF and also posted on the web.